Collaborative Research: CRI: IAD A Miniaturized Robotic Testbed for Development, Testing, and Evaluation of Protocols for Multi-Hop Wireless Networks

Simulation tools for wireless networks do not accurately
capture the behavior of wireless protocols in real-world
deployments. On the other hand, physical testbeds spanning
large geographic areas are expensive to deploy, manage,
and reconfigure. We propose to develop a miniaturized
multi-hop wireless testbed, called Mint, that will provide
a flexible and high-fidelity platform for protocol development,
debugging, and testing, while significantly reducing the
physical space requirement. A key architectural feature of
Mint is its use of mobile robots to carry wireless network
nodes, which can be programmatically controlled through a
serial port based API. The space requirement is "miniaturized"
by attenuating the radio signals in a controlled fashion.
Additionally Mint will also support automated fault
injection and analysis testing, remote testbed
reconfigurability, and autonomic 24x7 operation. The Mint
testbed will enable experimental investigation in a number
of research projects, such as, cross layer optimization,
optimal routing and transmission scheduling, effective
routing cost metrics, resource management for multi-channel
mesh networks, energy conservation for sensor networks,
scalable geographic-based service provisioning, and
modeling mobile low power wireless links. Our final
goal is to enable researchers to remotely access Mint
over the Internet in order to investigate their wireless
protocols in a miniaturized setting.